Photoelastic Analysis of Thermomechanical Stresses in Ceramic/Ceramic Composites

This SMALL GRANT FOR EXPLORATORY RESEARCH is made to study residual stresses in ceramic matrix composites. The main point to be investigated is how these residual stresses change during processing. Novel photoelastic techniques will be used.